Fabric Development at the Granulite to Amphibolite Transi- tion, Parry Sound, Ontario: Implications for Deformation of the Middle to Lower Continental Crust

The development of deformation fabric in ductile shear zones has been well studied in low to medium-grade metamorphic rocks, however there is little available data from granulite and upper amphibolite facies rocks. As these grades are thought to represent conditions of the middle to lower continental crust, information on fabric development and rheological behavior will be of considerable interest in understanding very deep-seated thrust faults. The work will involve mapping of exposed shear zones of granulite to upper amphibolite facies in the Parry Sound region of Ontario, Canada, and subsequent laboratory analysis to examine the fabric and microstructural development in these shear zones in detail, including the development of grain size and shape distributions, lattice preferred orientations, and the relationship of anisotropic mineral reaction sites to the fabric. Results are expected to improve understanding of the deformation mechanisms and rheological properties of the lower and middle crust.